Improved Seismic Quality Control and Display on R/V EWING

Proposal No. 94-01209 This award provides funding for an improved seismic quality control and display system aboard the R/V EWING, a 208 foot vessel that is owned and operated by LDEO in support of oceanographic research. NSF is the primary user of the EWING, and in 1994 the ship will support over 200 days of NSF-funded research. Much of this research will require use of the EWING's seismic system. The EWING's seismic system consists of up to 20 airguns and a hydrophone array of up to 240 channels. At this time all data acquired by the system is written directly to magnetic tape. Scientists must wait until the magnetic tape is full and the system has switched to a new tape before any data analysis may be attempted. This process can take anywhere from 22 minutes to 8 hours depending on the number of channels being recorded. Real-time access to the data stream is not available, and therefore, no quality control or preliminary data processing is possible. The PIs will place a SCSI splitter between the data stream and the tape drives to pass a copy of the data to a workstation in realtime. This data set could be used for realtime quality control and preliminary processing. The PIs will also develop routine quality control algorithms, implement low-fold stacking algorithms and data displays to aid in preliminary data processing, provide standard SEG-Y disks files via the shipboard computer network for scientists who prefer to use their own seismic processing software, and provide documentation for the software.